Support for Second International Dynamo Workshop

This grant will strengthen US participation in the forthcoming "Second International Workshop on Dynamo Theory and the Generation of the Earth's Magnetic Field" organized by the Czecholovakian Academy of Sciences, to be held at Liblice, near Prague, from June 21 to July 1, 1988.